Using Technology to Transform Teaching and Learning: Data-Driven Inquiry and Collaborative Learning in Introductory Astronomy

Astronomy (11) This project expands development of data-driven interactive exercises and
simulations for use in a collaborative learning environment to cover virtually all topic
areas in introductory Astronomy. The motivation is to a) use the naturally engaging
character of Astronomy as a vehicle to promote science literacy by integrating research
into the curriculum to transform the passive lecture mode into an active learning system
that emphasizes scientific process and methodology, b) explicitly create a collaborative
learning environment where student teams solve problems and analyze data and c) offer a
more engaging interface to science learning so that it becomes an effective recruiting tool
for future K-12 science teachers. These goals can be accomplished by the development of
robust software, based on real astronomical data sets, that runs in the Web browser
environment. Previous work by the team on this project has already produced some of these learning tools.
Assessment and evaluation of that effort shows that the methodology is sound.
New objectives will be accomplished via further software development and beta-testing
in local classes. This will involve approximately 700 students
annually on four different campuses. The overall goals of this effort are for the students
to be exposed to science methodology by engaging them in the actual practice of science
and for them to develop excellent collaboration skills. These outcomes will serve the
students far better than the traditional mode of rote memorization of syllabus-driven
material that currently constitutes the pedagogy.